TV411 What's Cooking? Serving Up Math and Science

'TV411 What's Cooking?' provides adults with low levels of literacy and numeracy with access to a free multi-media resource which delivers mathematics and science content in the form of an online cooking show. This series builds on a prior NSF planning grant (DRL 07-75623) and the research-based design of the TV411 educational materials while addressing biochemical, physical, and mathematical processes that occur in cooking and daily life. The project will be managed by the Education Development Center's Adult Literacy Media Alliance (ALMA) project, in partnership with the Public Internet Channel, a New York-based Head Start Program, and formal education partners.

The project's goals are to raise awareness of math and science content in daily life, overcome negative attitudes and behaviors related to science learning, and increase knowledge, vocabulary, and skills related to science and math while building capacity to use informal science education resources. Additional goals are to increase the capacity level of adult educators and informal workshop facilitators to teach basic math and science concepts. Finally, the project is designed to research strategies in which low-literacy adult learners utilize informal math and science resources in a Web 2.0 environment.

Deliverables include six video segments that embed basic literacy and numeracy concepts in a cooking show format, 12 interactive web activities including games and simulations, and a reconstructed TV411 Online website with Web 2.0 features. In year 2, Spanish language videos and web lessons, customized toolkits for The Public Internet Channel, workshop materials for parents, and articles and reports for dissemination to education and informal learning networks nationwide are produced. The videos will be distributed on TV411 Online and the Public Internet Channel (pic.tv).

The mixed-methods evaluation addresses four impact categories (awareness, engagement, attitudes, and behavior). An embedded evaluation approach will be used to determine knowledge gains, while behavioral and attitudinal questions will be asked separately in two web surveys given to random sample of 500 website visitors. Interviews are used to determine teacher perceptions of usability and effectiveness of materials. 'TV411 What's Cooking?' is projected to attract 1.5 million website visitors in the first year and an additional 500,000 each subsequent year. This well-researched project advances adult literacy and numeracy, while providing students participating in GED, adult basic education, and informal community-based programs with engaging STEM content.